MRI: Development of the Distributed Teravoxel Data System: Acquisition, Networking, Archiving, Analysis, and Visualization

EIA-0079871
Dimotakis, Paul E.
California Institute of Technology

MRI: Development of the Distributed Teravoxel Data System: Acquisition, Networking, Archiving, Analysis, and Visualization

This project addresses the problem of handling very large datasets through the development of generic acquisition and processing capabilities to be hosted at Caltech and made available to both Caltech and outside collaborators. Driven by investigations of flow turbulence, the project is designed to handle both laboratory and numerical-simulation data. The infrastructure will support analysis and visualization of terascale experiment or simulation datasets and their comparison to validate theories and simulation results.